REU Site: Virtual Environments REU Site

Institution: West Virginia University
Proposal Number: 0353806
PI: Frances L. Van Scoy
Title: REU Site: Virtual Environments REU Site

This project establishes an REU site focusing on virtual environments and multisensory computing. It will build on a prior REU Site award to establish undergraduate research internships in on-going research projects at West Virginia University. The interns will also participate in semi-weekly classes on virtual technology at the Virtual Environments Lab (VEL). Projects will include research in functional brain imaging; computational materials science; integration of geographical information systems (GIS) with virtual reality; and applications of advanced visualization technology in biometrics. The interns will work in teams of mentors, graduate students, other undergraduates, and sometimes high school students.

The project will support 11 students per year for a 10-week research internship. The PI will continue to recruit interns from Puerto Rico as she has in the past. The program will also emphasize student presentations and publication.